Analysis, Control and Optimization of Discrete Event Dynamic Systems

Abstract EEC-9527422 This award provides funding to Harvard University for support of a Combined Research-Curriculum Development Program entitled, "Analysis, Control and Optimization of Discrete Event Dynamic Systems." The CRCD program emphasizes the need to incorporate exciting research advances in important technology areas into the upper level undergraduate and graduate engineering curricula and stimulates faculty researchers to place renewed, equal value on quality education and curriculum development. This three year program, involving faculty from Harvard University, Boston University and the University of Massachusetts at Amherst will develop a curriculum in the multidisciplinary area of Discrete Event Dynamic Systems (DEDS) based on research accomplishments and consisting of new courses and a novel laboratory setting for the study of these large, complex, and expensive engineering systems. *** ??